Collaborative Research: A Two-Week Mentored Program to Prepare Graduate Students for Industrial Careers

The 15th annual Graduate Student Mathematical Modeling Camp (GSMMC) will be held June 12-15, 2019 at the University of Delaware, followed the week after by the 35th annual Mathematical Problems in Industry (MPI) workshop, June 17-21, 2019 at the New Jersey Institute of Technology. GSMMC is a mentored, problem-solving workshop, at which small teams of Ph.D. students from across the U.S. are guided through successful mathematical modeling of real-world problems presented by faculty or experienced postdoctoral mentors. Under careful mentoring, student participants build their modeling, teamwork and presentation skills during the week: via the teamwork on modeling and simulating the problems; through the final team presentations made at the end of the week; and in writing the final reports that are produced. Training activities also include numerical simulations and the preparation of a final report outlining their discoveries. These skills are put to use and consolidated the following week at MPI, where industrial participants present immediate modeling challenges facing their industries, on which academic participants (faculty, postdocs, and the Ph.D. students from GSMMC) work. Significant progress on the industrial problems is usually made, and Ph.D. student participants take the lead in presenting the findings to the participants from industry in final presentations at the week's end. In addition to building their skillsets and resumes, student participants are exposed to valuable networking interactions with a range of industrial participants.

The GSMMC-MPI program is designed to integrate interdisciplinary research and education for graduate students. The GSMMC is focused on graduate student education and training: its chief intellectual merit lies in the development and analysis, by students, of the mathematical models for the problems presented. Problems are highly interdisciplinary, presenting students with a novel intellectual challenge. With the preparatory training provided by the GSMMC, students are ready for the more open-ended, research-level environment of MPI. The questions posed at MPI challenge participants to design new ways of modeling and analyzing industrial mathematics problems in emerging areas of technology. Mathematical modeling, analytical techniques, numerical simulations, and data analysis must all be used effectively. The collaborative approach to problem solving, which involves mathematicians ranging from graduate students to experienced faculty, is central to the structure of MPI and provides significant additional training to graduate students, while promoting effective scientific communication. Full details for both events may be found at
https://www.mathsci.udel.edu/events/conferences/gsmmc-2019
https://web.njit.edu/~rmoore/MPI2019/MPI2019home.php